ITR: Application Partitioning Without Programming

Application partitioning is the task of breaking up the
functionality of an application into distinct entities that can
operate independently, usually in a distributed setting. As
networking changes the computing landscape, application
partitioning is becoming an increasingly common form of distributed
programming. This project examines the possibility of automating the
partitioning of a software application. Instead of hand re-coding,
higher-level tools allow the user to express how the application is
to be partitioned. The tools can then rewrite the existing
application code to replace local data exchange (e.g. function
calls, data sharing through pointers) with remote communication
(e.g. remote function calls, remote pointers or mobile objects).
The tools are based on a novel static analysis and translation
algorithm. The potential impact of this work is in significantly
simplifying distributed program construction, a prime
intellectual and practical challenge of computer science.
Automatic partitioning can revolutionize the way a large class of
distributed programs is developed. Additionally, the proposed
tools have a high educational value: they can be used for
illustrating crucial concepts in both programming languages and
distributed systems, while minimizing distractions due to low-level
complexity.